UNIDATA: Equipment Proposal for Participation in the UNIDATA Program

This project will purchase two suitable PC systems for the College Heights Weather Station located in the Department of geography and Geology at Western Kentucky University. This weather station is a vital laboratory facility for physical geography students in the Meteorology/Climatology track-Baccalaureate Degree, and Meteorological Technology-Associate Degree programs. In addition to departmental majors, students enrolled in introductory weather and climate courses total 500-600 students per year. In total, no less than five faculty will derive benefit by the output from the funded equipment. The new equipment will complement the recently acquired Zephyr Weather Satellite Receiving System to take full advantage of the PC-McIDAS capabilities and fully participate in the UNIDATA Program. The products produced from this new hardware coupled with UNIDATA software and services will be integrated into various levels of coursework offered in the department. The principal investigator will write a new set of laboratory exercises and restructure course curriculum elevating them to state-of-the-art status. As such, new avenues for research and hands-on experience will benefit students and faculty alike. The newly equipped College Heights Weather Station coupled with the Kentucky Climate Center (also housed in the Department of Geography and Geology) will make Western Kentucky University a focus for the study of atmospheric sciences in Kentucky. It is also expected that positions of employment and acceptance into graduate programs will increase for our graduates as they demonstrate an enhanced understanding of weather systems.